Surface Analytical Equipment for Investigation of Surface Reaction of Organometallic Compounds

Surface reactions of organometallic compounds play an important role in growth of multilayered compound semiconductor structures by a variety of techniques including organometallic chemical vapor deposition (OMCVD), chemical beam epitaxy (CBE) and atomic layer epitaxy (ALE). The synthesized compound semiconductor films such as AlGaAs, ZnSe and CdHgTe, in turn form the basis for advanced high-speed devices as well as solid state lasers and detectors. High quality materials have been grown by trial and error approaches. As applications continue to expand, the demand for increasingly more precisely controlled film stoichiometry and dopant concentrations requires improved understanding of basic growth processes. Fundamental insight into organometallic surface reactions on compound semiconductors is thus critical to the further development of thin film growth techniques and, implicitly, novel device applications. Identification of surface reaction mechanisms will also lead to improved process models suitable for reliable design of the next generation of process equipment. This grant is for the purchase of Auger electron spectroscopy (AES), low energy electron diffraction (LEED), temperature programmed desorption (TPD) surface analytical equipment for research in vapor phase growth of compound semiconductors for advanced high speed and optoelectronic devices. The equipment will be incorporated into an existing ultra-high vacuum system used for chemical beam epitaxy (CBE) of compound semiconductors and already equipped with in situ Fourier transform infrared spectroscopy. The surface spectroscopy tools will be used in systematic investigations of the fundamental adsorption and desorption processes of group V and VI organometallic species, as well as their surface reactions with group III and II species. The chemical structures of the ligand will be systematically varied to explore the relationship between chemical structure and reactivity. The PI will also investigate the surface reactions of these compounds with common group II and III precursors to elucidate the growth mechanisms underlying the synthesis of important binary compound semiconductors. These experimental studies of adsorption, surface reaction, and desorption processes of group V and VI organometallic reagents should provide new insight into the growth of compound semiconductors by vapor phase techniques such as CBE and low pressure OMCVD. They should also lead to new fundamental understandings of the relationship between metal-ligand structure and surface reactivity useful in the design of novel precursors.